Statistical Challenges in Modern Astronomy III

This award provides funds to support graduate students and young
researchers to attend the conference Statistical Challenges in Modern
Astronomy III, to be held from July 18-21, 2001, at the Penssylvania
State University, University Park, PA. The primary focus of this
cross-disciplinary conference is on applying advanced statistical
techniques for the analysis of observational data in astronomy. One of
the topics of the conference will be statistical methods for extremely
large data sets and information systems. Another topic is statistical
aspects of dealing with data resulting from the current revolution in
observational cosmology. The organizing committee and speakers represent
both communities and cross-disciplinary discussion is encouraged.